Planning Grant: New Architectures and Disruptive Technologies for the Future Internet - A Wireless & Mobile Network Community Perspective

This project aims to involve the wireless and mobile network research communities in a discussion of new architectures and disruptive technologies for the future Internet, leading to a white paper with future R&D recommendations. The objective is to solicit service requirements and innovative network architecture concepts from wireless, mobile and sensor net researchers at universities and industrial/government research labs, and to consolidate this input into a coherent vision/agenda for future research and experimental infrastructure needs.